Analysis of Spin Polarized Transfer and of Micro-Macro Theories for Polymers and Liquid Crystals

The investigator takes up three projects. In the first
project, the emphasis is the analysis and the design of efficient
numerical methods for the simulation of recent models proposed for
the dynamics of the magnetization coupled to the spin accumulation
in multilayers when a current perpendicular to the plane of the
layers is applied. The dynamical equation for the spin is a
diffusion equation with discontinuous coefficients, and the
magnetization dynamics is described by the Landau-Lifshitz
equation from ferromagnetism. In the second project, the
investigator studies a new model for liquid crystals based on
Inhomogeneous Density Functional Theory. The model can describe
the isotropic, nematic, smectic A, and crystalline phases.
Finally, in the third project, the investigator studies the
formation of aggregates in polymer mixtures.

Ferromagnetic materials are widely used in the magnetic
recording industry, which continues to be the dominant technology
for the storage of digital data. The project addresses some of
the technological difficulties found in the design of magnetic
devices such as magnetic memories (MRAMs). Liquid crystals have a
wide range of applications. Their optical properties are highly
sensitive to electric and magnetic fields, which has made liquid
crystals ideal candidates for optical-switching devices, such as
video displays and optical memories. They are very sensitive to
temperature changes as well, which makes them useful in
applications involving sensors. More generally, polymers appear
in most aspects of our life, from the amniotic fluid inside
biological cells, to plastics and shampoos used on a daily basis.
Understanding the dynamics of biological membranes and transport
through them is of fundamental importance in the development of
efficient methods for the delivery of medicines. Understanding
the process of aggregation in polymer mixtures can have a
significant impact in the design of new products. This study of
polymers and liquid crystals addresses some of these technological
and biological issues.